Image Processing Equipment for Senior Design Lab Course

This grant supports the acquisition of equipment for upgrading the image processing capability of the senior design laboratory course. The two-semester senior project laboratory is the capstone of the Broadly undergraduate engineering program. In recent years interest in image processing has grown, requiring students to generalize their knowledge to the two-dimensional spatial and spatial frequency domain. Processing "real world" images motivates a deeper understanding of signal processing concepts and increases awareness of such fields as manufacturing and quality control, autonomous vehicle guidance, microscopic analysis of materials, satellite resource imaging and medical imaging. The equipment includes two PC video frame processors, upgrades memory and disc capacity for an existing PC, and one new PC computer. New video input devices include one medium resolution camera, one line scanner, one video recorder and other supporting hardware. The institution is providing matching funds in an amount equal to or greater than the funds provided by the Foundation.